EHS: Adaptive, Power-Efficient Processors for Sensors and Embedded Systems

Margaret Martonosi, Princeton University, Adaptive, Power-Efficeint Processors for Sensors and Embedded Systems

Sensor network systems have seen increasing research attention recently,
with a wide range of scientific and commercial applications. Sensor
processors need "agile" performance that responds quickly to
high-throughput bursts, with also lower-energy execution when
possible to minimize energy consumption. Sensor systems have
limited power budgets, with traditionally most energy going to
radio communications. But as radios improve and computational
demands increase, more of the energy budget is shifting back
to the processor.

This research examines processor architectures for agile,
energy-efficient, stream-based processing in sensor networks
and other embedded systems. A particular focus is on using
parallelism (through tiled processing units) for energy management.
Another key aspect is investigating the interconnect between on-chip
processing units, and exploring design techniques that let different
processing elements run at different clock rates. Connecting processing elements by
a system of hardware queues, for example, allows the chip to exploit
a thread-based, producer-consumer model to adapt processor settings
to running threads; this enables efficient energy and speed control
via dynamic voltage/frequency scaling. By exposing
queue/memory status to near neighbors, processors can use
control theoretic approaches to coordinate performance/energy
needs across local and broader regions.

Major research questions include: (i) How much on-chip parallelism
best balances application performance and energy? (ii) What range of applications
are applicable to this model? (iii) How to design performance and
power-efficient speed-control models based on local and global
control approaches? (iv) What are the roles of distributed and
hierarchical control techniques? (v) Can control theoretic
approaches be devised that offer good responsiveness and stability
in the face of sensing errors and sensing/actuation delays?